University of Massachusetts Creativity Workshops

The workshop brings together two groups of specialists and engineers who have the goal to identify factors for the selection of highly creative individuals especially in engineering.